Species complexes in the sea: model systems for studying the biodiversity and evolutionary history of the Indo-West Pacific reef biota

Coral reefs are arguably the most diverse and vulnerable coastal ecosystems and are
currently undergoing unprecedented decline. Both their diversity and vulnerability are
influenced by genetic structuring, the spatio-temporal scale and pattern of geographic
differentiation within and among species. By documenting such structuring, we gain a better
understanding of the origin and distribution of reef biodiversity. Furthermore, data on the level
and scale of genetic interconnections are crucial for predicting reef response in the face of
stressors and for the design of appropriate conservation strategies.
On the basis of morphological species ranges, previous workers have generally
characterized reef organisms as widespread, especially in the Indo-West Pacific (IWP), the
largest and most diverse marine region. Wide species ranges in the IWP imply dispersal across
numerous, vast, open ocean barriers, supporting the belief that reef organisms have
tremendous dispersal abilities. Past molecular studies found IWP populations to be typically
interconnected over basinal to sub-basinal scales. However recent studies on stomatopods in
Indonesia and supratidal crustaceans in the Americas encountered finer levels of genetic
differentiation. These studies raise the question: is fine-scale genetic structuring common
among reef organisms?
Preliminary data show fine-scale genetic differentiation in several widespread, reef-
associated gastropods. Each species is composed of numerous, divergent populations with
ranges limited to archipelagoes or islands. Their life history attributes are typical of many reef
organisms, and initial data show considerable structuring in co-occurring taxa with different life
history strategies. The goals of this project are to document the extent of geographic, genetic
structuring in selected reef-associated gastropods in the IWP, and to use these patterns to
address questions about large-scale, spatio-temporal processes in the marine biosphere.
Evolutionarily significant units (ESUs), the relevant conservation and evolutionary units, will be
identified throughout the region. Hypotheses about the source and dynamics of ESUs, and thus
patterns of distribution and diversification, will be tested using sequence data.
The significance of the proposed work lies in the nature of fine scale genetic structuring
encountered in these taxa, which makes them model systems for studies of marine speciation
and biogeography, and has major implications for reef management and conservation of
biodiversity. Fine-scale, but deeply divergent genetic structuring has rarely been encountered in
marine taxa and only in continental settings; its occurrence on islands is unprecedented and
contrary to expectations. How can organisms capable of dispersing far into Oceania
differentiate on an archipelagic scale? This conundrum implies that rare dispersal events may
be highly important in the spread as well as differentiation of marine populations. Exploring the
phylogenetic nature of genetic structuring in independent gene trees will shed light on a variety
of hypotheses about the origin of marine biodiversity and distribution of reef organisms.
High levels of genetic differentiation also imply that conservation and resource management strategies on reefs need to be appropriately scaled. Understanding the size and distribution of genetically interconnected units is crucial for designing appropriate management units, such as marine protected areas. Congruent genetic structuring delineates intrinsic breaks in the distribution of reef biota and thus identifies natural management units. This project will lead to better management strategies for reef-associated marine resources, and will also have
direct educational impact at several levels. The project team will be interacting with resource
managers regularly. The species studied are important food organisms, and provide an
excellent venue to introduce implications for resource management and thus influence reef
management strategies on numerous Pacific islands. The results of this work will be
disseminated regionally as well as in the scientific literature.